Assessing the Industrial-Commercial Impacts of Federal R & D Laboratories

This study will assess the commercial impact on U.S. industry of U.S. federal laboratories' scientific and technical outputs. The assessment will be from the perspective of industry. Using data from a recent comprehensive study of 297 federal laboratories performed by the U.S. GAO, a population of federal laboratories will be defined. From that population a stratified probability sample about 40 federal laboratories will be drawn. The laboratories' Office of Research and Technical Applications ıORTA! (or the equivalent) will provide information about technical activities of the laboratories and outputs used by industry. The technical activities of the laboratories and outputs used by industry. The technical activities examined include not only the direct products of federal laboratory research, development, and demonstration (RD&D) activities, but also the indirect transmission of knowledge and know-how. From ORTA records, a sample of industrial users will be developed. The study will gather qualitative and survey data from industrial users on such questions as how the users became aware of federal laboratories' products, barriers to use of the products, commercial value of the products, and level and types additional technical development performed by the user. The study will also examine a set of "non-users." The industrial users will be asked to identify firms similar (in size, product lines, market share) to their own. The investigators will then contact those similar firms, identify "non-users" of federal laboratory products, potential interest in those products, and perceptions about requirements for using federal laboratory outputs. This design will (a) explain patterns of laboratory- industry interactions, and (b) assess the commercial impacts of the federal laboratories.